SBIR Phase I: Bright High-Energy X-Ray Targets

*** 9760545 Smith This Small Business Innovation Research Phase I Project will demonstrate feasibility of a new high energy x-ray target technology allowing linear accelerator sources to operate at twice the brightness of current sources. By incorporating an innovative approach to removing heat, the target can handle the increased power load with no increase in the peak temperatures which limit the target performance. The increase in brightness will increase throughput and/or improve image resolution for computed tomography (CT) systems. The objective for Phase I is to demonstrate, on thin targets, that the bond between the target and the cooling substrate can withstand the repeated thermal transients generated when the target absorbs energy from intense electron pulses. Successful demonstration of the bond strength will lead to a Phase II extension of this technique to the thick targets required for commercial high energies. The enhanced performance of CT systems will accelerate the acceptance of CT as an important component of the rapidly growing agile-manufacturing and rapid-prototyping industries. Additional applications are anticipated in the medical and industrial imaging industries. ***